Workshop to Define Future Directions in Mid-Ocean Marine Geology and Geophysics

9629484 McNutt This grant is to provide funds to hold a workshop that will define the fundamental scientific questions in the "mid-plate" area of marine geology and geophysics, where "mid-plate" is the part of the ocean basins between the mid-ocean ridges and the margins. This workshop will prepare a white paper that will be used as part of a larger marine geology and geophysics planning effort. ***